Dynamic Characterization of Shallow Foundations on Granular Soils

9320539 Pak The aim of this project is to improve the current understanding of dynamic soil-foundation interaction, from theory to practice, focusing on shallow building foundations embedded in granular soils. The objectives are to: (1) examine and delineate the applicability of existing analytical and numerical solutions to the physical problem, (2) perform thorough parametric studies to clarify the influence of important foundation and soil parameters on the dynamic response, (3) identify and adapt relevant existing theories to granular soil conditions by calibration, and (4) develop more comprehensive solutions and formulas to deal with the stress-induced heterogeneous soil conditions intrinsic to this class of problems. To achieve these goals, a fundamental series of experiments will be conducted on a geotechnical centrifuge. The interest is in determining the foundation response in vertical, horizontal, and rocking modes under earthquake and random loading. Particular attention is given to the development of a comprehensive data set on the effects of: (i) foundation size, (ii) static foundation load, (iii) nonlinearities due to dynamic excitation levels, (iv) foundation shape, (v) embedment, and (vi) intrinsic and global parameters on the dynamic response. In addition to furnishing the much-needed physical basis for further theoretical and numerical developments, this research will allow the derivation of direct semi-empirical relationships which can be of immediate value to designers. ***